A 2-D Coupled Boundary Element and Edge Function Method WithApplication to Rock Fracture Problems

CMS-9622645 Ernian Pan University of Colorado A two-dimensional coupled boundary element and edge function method (BEM/EFM) is proposed for the first time to study rock fracture propagation problems. The most outstanding features of this combination are its ability to handle complex crack geometries and to simulate crack propagation without discretization along crack surfaces. In addition, any kind of rock anisotropy can be handled and the effect of a gravity body force will also be considered.